Crack Kinking of Concrete Structural Members Strengthened With Bonded Fiber Reinforced Plastic (FRP) Laminates

9414614 Reddy The project is an experimental and analytical investigation of crack kinking in concrete structures bonded with prestressed and nonprestressed fiber reinforced plastic (FRP) laminates. Concrete beams bonded with prestressed laminates exhibit superior strength (3 to 4 times higher compared to those with nonprestressed ones). The investigation will address the propagation of cracks into the concrete core for specimens with varying thicknesses of the bonded layer.